Arctic System Science Data Coordination Center, ADCC-2004, at the National Snow and Ice Data Center, NSIDC

The Arctic System Science (ARCSS) Data Coordination Center (ADCC) is the central data depository and long-term archive for data collected by projects funded by the National Science Foundation's ARCSS program. The ADCC is located at the National Snow and Ice Data Center, University of Colorado, Boulder, Colorado, which is a national information and referral center supporting polar and cryospheric research. The main objective of the ADCC is the broad and unlimited availability of research data. The primary goal of the ADCC is to collect all ARCSS related data and to provide for its preservation through long-term, off-site archiving. ADCC provides presentation of these data for all potential users (i.e., ARCSS researchers, worldwide scientific community, policy makers, educators, and the public), as well as easy access to a variety of ARCSS related data sets, and assists in the synthesis of available data. This will be accomplished by ensuring the forward and backward compatibility of the data sets as the Web technologies continues to evolve.